Integrating Problem Solving and Technology into Mathematics Teaching: A Leadership and Training Project

Combining an academic-year leadership program with summer institutes for junior and senior high school mathematics teachers, this three-year project will develop a model for collaboration between a university and the public schools. Each year, five "co-op teachers" will spend the academic year at the university, teaching and taking courses, participating in a colloquium on mathematics instruction, and working on an independent project. Each summer, twenty other teachers will participate in a four-week workshop that focuses on problem-solving and the use of microcomputers and programmable calculators in teaching mathematics. Follow-up activities include six meetings during the academic year, as well as visits by the university faculty and the co-op teachers to the participants' classrooms. The evaluation will assess the project's effect on the participants' teaching practices and the co-op teachers' development as instructional leaders. The project will serve a total of 75 teachers, including 15 co-op teachers, from the Tucson, Arizona, area. The university and the school districts are contributing as cost-sharing an amount equal to 250% of the NSF award.